Fluorescence Lifetime-Based Measurements of Biosensor Arrays Using Closed Loop Auto-Oscillating Systems

Professor Gabriel Lopez of the University of New Mexico is funded by the Analytical and Surface Chemistry Program to develop a fluorescence detection method for biosensor arrays based on excited state lifetimes. The method, based on phase information about the emitted light, would have the advantages of fluorescence in terms of sensitivity with greater selectivity than just wavelength characteristics alone. The closed loop auto-oscillating system developed in the PI's lab will be improved for stability and reliability and will be built into a sensor platform. Students will learn biosensing, optics and instrumentation. The work in this Small Grant for Exploratory Research will also have impact in spectroanalysis in general.

One approach to sensing trace biological agents is to detect light emitted from a molecular tag on the agents. The development of sensitive detectors that are rugged, reliable and inexpensive would have impact on our ability to sense and identify biological agents. This research has national security implications as well as potential medical and environmental applications.